NSF CISE Research Instrumentation Proposal for Multi-Insti- tutional Research in Active Vision

This award is for the purchase of a multiple degree of freedom, high precision, light weight stereo camera head. The same equipment is being purchased at three other institutions in a shared research effort. Research topics include gaze control and target tracking, stereo and motion analysis, landmark-based navigation, automatic acquisition of object and environmental models, hand-eye coordination, dextrous manipulation with multi-fingered hands, real-time perception and manipulation. System software, algorithms and subsystems will be shared across the institutions. The University of Maryland will be purchasing equipment to support a multi-institutional shared research effort in active vision for robot navigation and manipulation. Other members of the consortium are the University of Rochester, University of Pennsylvania and the University of Massachusetts. Each institution will acquire the same state- of-the-art binocular camera head of high precision and high speed, and will share in the development of systems software and application software.